Special Project: Assisting Institutions of the American Indian Higher Education Consortium to Compete for Research and Education Funding Opportunities

9414221 Loufas The American Indian Higher Education Consortium (AIHEC) is composed of the Native American tribal colleges and colleges managed by government agencies which serve primarily the Native American peoples. This project provides travel support so that AIHEC college faculty can attend the 1994 National Educational Computing Conference. Dissemination of reports by participants and follow up activities are also planned. ***